Studies on Suspensions of Ultrafine Particles and Aerosol Impaction

An important characteristic of particle laden, supersonic gas jets issuing from convergent nozzles is that the particles can be strongly focused at axial distances which depend on particle (aerodynamic) size. This research will investigate experimentally the potential of this phenomenon for detecting and sizing particles of 1 to 100 nm diameter. Particle concentration profiles in the jets will be measured using small diameter probes. The research will include a theoretical study of gas and particle motion in supersonic jets for the technologically important jet Reynolds number range 5 to 500. If time permits, the generation of ultrafine monodisperse particles by electrospraying low conductivity, dilute solutions will be examined experimentally. The particle focusing characteristics of supersonic jets make them an attractive tool for rapid detection and sizing of submicron particles. Such jets may also be attractive for "writing" with small particles on substrates.